REG: Equipment for X-Ray Stress Analysis

9311693 Schadler A x-ray stress analysis and x-ray tensile facility which will be purchased to support research. The items include a mini- tensile test device which will be mounted on an existing Siemens horizontal diffractometer, Siemens x-ray stress analysis software ("Stress AT"), and a computer for machine control and data acquisition.